CPATH CB: A Community Addressing Seamless Information Technology Education for Students (CSITES)

CSITES will build a community of practitioners from Massachusetts, Virginia and Indiana who are actively working to define and implement new models that provide for seamless advancement from 2-year to 4-year programs. Convening relevant administrators, faculty, and local business partners within each of the three regions, the CSITES team will research current transfer models (successful and unsuccessful), identify exemplary frameworks (such as common learning outcomes identified in SIGITE's model IT curriculum) and identify the variables that lead to enhanced upward progression.

With information gathered during the investigative stage, the CSITES team will provide process documentation regarding the model 2 and 4-year curriculum implementation strategies in use. Efficient ways to deal with ongoing changes in the curricula will be researched and documented. Evaluative criteria to determine the effectiveness of the solutions associated with identified variables will be developed and applied to data collected on student advancement to measure the success of the models. Summits for stakeholders will be held in each of the three regions to disseminate information about identified effective transfer models. The compilation of attributes that contribute to seamless community college/university transfer will be assembled into a replicable model and made available to other schools around the country.